Understanding Math Assessment: A Program for Parents

9628415 Crippens This project creates and implements a national parent engagement and education campaign. It provides a framework for all parents to explore existing and alternative forms of assessment within the context of changes in current classroom math curriculum and practices. The campaign also provides a mechanism for enhancing communication between teachers, schools and parents in order to ensure support for math strategies and practices by all members of learning communities nationwide. Project products include: * A thirty-minute documentary on mathematics reform and assessment, to be broadcast by public television stations, that will also include a viewer's guide and local publicity materials. * A Community Education Kit containing a Leader's Guide, Parent's Handbook, and short videotapes. Project materials and activities are designed for parents of elementary-age children, with a specific emphasis for materials on grades 3-5.